Request for Block Travel Grant for U.S. Participants to Attend ICOSSAR '85

The 4th International Conference on Structural Safety and Reliability (ICOSSAR '85) will be held in Kobe, Japan, in May 1985. The ICOSSAR conferences, including the one proposed in Kobe, Japan, in 1985, are international in participation and significance. Subjects covered in the conferences encompass such areas as civil engineering, space structures, naval architecture and marine engineering, nuclear power plants, mechanical engineering, and materials science, as well as earthquake and wind engineering. U.S. participation in all past ICOSSAR conferences has always played an important role in terms of the organization of the conferences as well as technical contributions. Support will be provided for the travel of a limited number of U.S. experts and specialists in structural reliability.